Coding for Ultra-Fast High-Density Recording Systems

Abstract:
As the recording technology further matures, more complex coding
algorithms for recording channels are challenging integrated circuit
manufacturing technology limits. The implementation of recent major
conceptual advances in coding theory, including iterative decoding,
codes on graphs as well as constrained codes, has been limited mainly by
the speed and recording density requirements of modern recording
systems. This research is developing coding schemes for
ultra-fast high-density recording systems that can lend themselves to
very low complexity implementations.
The focus of the research is the idea that good codes can be
constructed without using random interleavers or random sparse parity
check matrices. The constructions are based on combinatorial
designs and finite geometries. Such codes have a simple and well-defined
structure, which means lower decoder complexity. This approach also
offers a large flexibility in choosing code parameters. The fundamental
code construction issues addressed in this research include
understanding a structure of good codes and tradeoffs among code length,
rate and structure as well as matching a code to a partial response
channel. The second class of codes studied in this research are
constrained codes and graph constrained codes.